Isotopic Biogechemistry of Biomarkers and Paleobarometry of CO2

Dr. Hayes proposes to apply stable carbon isotopic techniques to organic biomarker compounds to investigate two problems using a single suite of Holocene-to-Pleiostocene hemipelagic sediment samples. The first problem is to use carbon isotopic evidence to resolve the controversy about the source(s) (terrestrial and/or marine) of 24-ethylcholest-5-en-3B-ol (or B- sitosterol) to marine sediments. Isotopic compositions of sedimentary sterols will be compared to those of the same compound derived from known marine (coccolithophorid culture) and terrestrial (land plant) sources. The second problem is to test a method to determine the atmospheric partial pressure of CO2 (pCO2) for the Pleistocene-to-Holocene by measuring the carbon isotopic differences between each of two organic biomarker classes (tetrapyrroles and long chain alkenones) and coeval foraminiferal shells. The validity of this technique will be checked by comparing these results against the 40,000 yr pCO2 record measured in Antarctic and Greenland ice cores.//